Chicxulub Scientific Drilling Project: Sulfur Isotopic Systematics of the Chicxulub Sequence and Time-Equivalent Paleosols

0207836
Pratt

The International Continental Scientific Drilling Program (ICDP) is funding the drilling of a 2km hole in the Chicxulub impact crater on the Yucatan Peninsula in Mexico. NSF is funding US investigators to analyze core samples from the Chicxulub Scientific Drilling Project (CSDP). The Chicxulub crater is one of the world's largest impact craters and has been linked to the mass extnction event at the Cretaceous - Tertiary boundary ~65 million years ago. As part of the CSDP Science Team, the Principal Investigators will look at the Sulfur (S) isotopic systematics of the Chicxulub impact site. They will investigate the mixing between target rocks and the bolide at the drill site. This will be an important contribution to the complete characterization of the Chicxulub drill core samples.
***